SHF: Small: Light-weight Architectural Schemes for Resilient High-performance Microprocessors

In future technology generations, smaller and more transistors
operating at low supply voltages and high clock speeds will be
increasingly susceptible to many different resiliency problems, such
as soft errors, wear-out issues, hard errors, and off- and on-chip bus
bit errors. These errors may cause silent data corruption, application
aborts, or system crashes in high-performance microprocessors and
computer systems. Previous techniques for addressing these errors
incur significant performance and power overheads despite
optimizations, and often require invasive changes that incur high
implementation complexity.

In this research project, the investigators propose a novel,
light-weight, yet highly-effective architectural approach to processor
reliability that incurs much lower overheads than existing approaches
by leveraging key architectural observations about the problems.

This project's innovative approach for the detection of soft errors,
wear-out, and hard errors is based on detecting execution anomalies
that are triggered by errors, without using redundant execution. By
exploiting the notion of value locality, this project generalizes
anomalies to include unexpected values as well as conditions (e.g.,
memory access exceptions) and provides significant coverage which
includes the most problematic cases of silent data corruption. For
recovery from soft errors, the project's investigators propose a
retry-based scheme that avoids adding any hardware overhead to achieve
recovery by using existing spare speculative resources in the
processor. For off-chip bus bit errors, the investigators propose a
novel bit interleaving scheme that reduces the chances of multiple
bits in a single error correcting code (ECC)-protected data unit being
corrupted undetectably or uncorrectably. Like the other schemes, this
interleaving imposes minimal power, performance, and complexity overhead.

This project targets achieving reliability while keeping power,
performance, and hardware overheads low, an important goal for the
U.S. microprocessor and computer hardware industry. The project's
investigators are committed to releasing the research artifacts as
open-source software to be used by the research community. The
graduate students working on this project will be trained in
architecture and reliability issues and will be well-positioned to
join the U.S. computer hardware industry. This project will also
support educational activities such as homework and term projects in
undergraduate and graduate courses as well as outreach activities of
various centers at Purdue with which the investigators are involved.
With a woman as one of the investigators, the project will act as a
basis for encouraging women to join graduate programs in electrical
and computer engineering.